Planning Public Forums on Flooding

This planning grant deals with helping people in a flood prone area, Lehigh Valley, understand climate change and the impacts it can have on their livelihood. Through a series of town hall type meetings and distributed materials, the Nurture Nature Foundation and scientists will provide perspective on climate change and options now available to them. The target audience will range from teenagers to adults. During these discussions STEM concepts shall be integrated into the materials. An important aspect of this planning project is devising strategies for interactions with the local groups in meetings and for effective displays and exhibits that not only address the flooding/climate change issues but also reflect the STEM principles and concepts that are involved.